International Postdoctoral Fellows: Origin of the Structural Stability of the Molten Globule State in Protein Folding

9400649 Haynie This award is under the International Junior Investigator and Postdoctoral Fellows Program, which enables U.S. scientists and engineers to conduct three to twelve months of research abroad at research centers of proven excellence. The program's awards provide opportunities for joint research, and the use of unique or complementary facilities, expertise and experimental conditions abroad. This award will support a twelve-month postdoctoral research visit by Dr. Donald T. Haynie of Johns Hopkins University to work with Dr. Christopher M. Dobson at the University of Oxford. Their research concerns the origin of the structural stability of the molten globule state in protein folding. Understanding how proteins fold is a major objective of biophysical and medical research throughout the world today. Many commercial opportunities depend on knowing how information is transferred from an extended polypeptide chain to the corresponding equilibrium three-dimensional structure. Much contemporary protein folding research concerns molten globules, partly folded states of proteins stable at equilibrium. Molten globules are generally considered to represent conformations on the protein folding pathway. The research plan is divided into three separate stages, the first, which is being funded under this program, is to create mutant forms of hen egg white lysozyme (HEWL) and characterize their biochemical and cell biological properties. Structural and energetic studies of the mutants are to be conducted during the second and third phases which will be funded elsewhere. ***